Stochastic Models for Queueing and Finance

STOCHASTIC MODELS FOR QUEUEING AND FINANCE
NSF Proposal: DMS-0103814
Principal Investigator: Steven E. Shreve

ABSTRACT

Work is proposed in two areas. The first is the analysis of queueing
systems with deadlines under heavy traffic conditions. Consider a
queueing system with renewal process arrival streams. Suppose that
upon arrival, each customer is assigned a lead time, the amount of time
until the customer's deadline for service elapses. One can model the lead
times of the customers in queue at a station as a counting measure on the
real line, the location of the point masses corresponding to customer lead
times. Research will address the convergence of these measure-valued
processes under heavy-traffic scaling. Research will also be directed to
mathematical models for finance. On such model is for an option on a
traded account. For the simplest of these, an account trading one
underlying geometric Brownian motion and a constant-interest-rate money
market, there is a strikingly simple optimal rule: hold the geometric
Brownian motion long when the account value is negative and short when
the account value is positive. For an option on two geometric Brownian
motions, there is a conjectured optimal rule, which is supported by
numerical analysis. The proof appears to require the development of new
mathematics. A second mathematical finance problem concerns the
development of a unifying model for risk-neutral pricing of credit
derivatives.

This research has two parts. The subject of the first part, queueing
systems with deadlines, arise in communication networks, especially
networks used to transmit digitized video or audio signals. Data which
are too long delayed can cause unacceptable disruption of the signal.
The proposed research will provide a basis for performance analysis of
heavily-loaded communication networks which take deadlines into account.
The subject of the second part, mathematical models for finance, builds on
the revolution in finance begun by the Black-Scholes option pricing
formula. The particular work proposed here is concerned with proper
pricing and usage of financial instruments whose purpose is to insure
against loss, either due to drastic reduction in market value (options on
a traded account) or default (credit derivatives).